Microcomputer and Data Acquisition System for Undergraduate Physics Projects

The Physics Department at Washington College will buy a Macintosh, an accelerator board, and a system for data collection in order to do simulations, numerical computation, and data collection and analysis. Students will do projects in the following areas: i) nonlinear dynamics; ii) biological physics; iii) astronomy and astrophysics; and iv) analog- digital interfacing. A dedicated computer system will offer students the possibility to expand their formal work to projects that bring the excitement of current research in physics.